Incorporating Fourier Transform Proton & Carbon-13 Nuclear Magnetic Resonance Throughout the Undergraduate Chemistry Curriculum

The college will purchase a 200 MHz FT-NMR spectrometer to enhance the student laboratory experience. It will introduce 13C NMR, variable temperature, and time-resolved studies into the laboratory program. The spectrometer will be integrated into the curriculum so that every student experience builds upon knowledge and expertise already gained. NMR spectroscopy will be introduced in the sophomore year and integrated into the upper division curriculum. In each course, the students will independently operate the instrument, using it not only for identification and structural characterization of compounds but also to obtain chemical parameters such as equilibrium and rate constants, diffusion coefficients, etc. It will also provide valuable hands-on experience with a computer- controlled data acquisition system. An advanced theory course including work with the spectrometer, and independent research projects involving FT-NMR, will be offered. The Physics department will incorporate the spectrometer into their modern physics laboratory course.